SGER: TFP Differences Among OECD Countries: Theory and Evidence

This research develops the theory underlying the aggregate production function to show how labor market policies affect output and total factor productivity in particular. Labor market policies affect output as a result of distorting how individual production units react to the economic environment. In this context two economies with access to the same level of technology can have two different levels of total factor productivity. This research develops a formal explicit theory of the nexus between labor market policies and macroeconomic performance, and attempts to empirically verify the effects of such policies on measured cross-country productivity differences.